RUI: Disease Resistance in Tomato to Xanthomonas Campestris pv. Vesicatoria

The interaction between a host plant and a pathogen causing disease to the plant is examined in this study of a tomato race and a xanthomonad. The specific objective is characterization of the essential role played by the avirulence gene, avrRxv, from the bacterium, that induces a resistant response in the plant. An examination of the inductive conditions for expression of the gene will utilize Western and reporter gene analyses; cell fractionation studies will be carried out in order to learn the subcellular localization of this product, and specific elicitor activity will be isolated and characterized. The intricate interactions between a host plant and a pathogen for it is to be examined, in this case between a tomato and a bacterium, Xanthomonas. Focus of the study will be on the role of a particular bacterial gene that brings about a resistant response in the tomato host. //